Varieties of Entrainment Effects in Task and Interpersonal Behavior

When groups or individuals do tasks under time limits that are either very short or very long with respect to the task load, they modify their work rate in later work periods even when those time limits no longer hold. These "carry over" effects on work rate are called entrainment effects. Experiments in earlier phases of this research suggest that these entrainment effects differ for tasks of different types (e.g., for problem.solving vs planning tasks vs creativity tasks vs decision making tasks). Those differences seem to arise because groups experience different forms of task difficulty. Under some task type and time pressure conditions, groups experience "quantitative difficulty", a problem of capacity, and speed up their rate of work in later trials. Under other task and time conditions, groups experience "qualitative difficulty", a problem of capability, and slow their rate of work on later trials. These differences seem to be reflected in task product quality as well as in rate, but quality differences are not always in a direction opposite to rate. Furthermore, evidence for differences in these task difficulty experiences are reflected in the group's pattern ofinteraction during task performance. The next phase of this research program will carry out two sets of studies to confirm, clarify, and elaborate those entrainment findings. The first set will be a series of experiments: (a)to confirm these task type and time limit differences; (b) to clarify the role of capability and capacity experiences in these entrainment patterns; (c) to assess the entrainment effects on task product quality for parallel sets of conditions; and (d) to explore how these entrainment effects get manifested in the group's interaction during task performance. The second set of studies will try to explore those same hypotheses with natural groups doing their "normal" tasks and/or with experimentally created but relatively long term groups doing whole work projects of larger scope. Both sets of studies, together with past research, will provide a detailed picture of the task, group, and work conditions that will predictably produce various patterns of work rate and quality and the task experiences and interaction patterns underlying them. The Principal Investigator is a senior researcher, well-known for the high quality of his prior research.